Research Training Group in Genetic Mechanisms of Evolution

This award provides funds for the establishment of a Research Training Group in Genetic Mechanisms of Evolution. The faculty group is a mixture of outstanding senior and junior investigators who come from a variety of disciplinary backgrounds, but share a common interest in the study of genetic mechanisms and their role in the biology and evolution of organisms. The funds will provide stipends for graduate students and postdoctoral fellows, will defray part of the cost of the trainees' research, will enable undergraduate students to participate research during the summer, and will allow the trainees to attend scientific meetings. In addition, funds will be used to purchase specialized research equipment to be used by trainees, to defray part of the cost of trainees' research and to bring investigators from other institutions to Eugene for colloquia. In recent years, genetics has benefitted from the development of powerful new techniques for genomic analysis. These techniques permit studies of genetic variability in laboratory and wild animal populations that were previously impossible. Similarly, they allow relatively facile analysis of physical traits (phenotypes) that result from the combined action of several genes. This development has provided an unparalleled opportunity for the study of the interplay of genetic variation, phenotypic variation and the environment that occurs during evolution. To take the fullest advantage of this opportunity, investigators will need a fundamental understanding of the principles and practices of molecular biology, of population biology and of evolutionary biology. This award provides funding for a training program that will produce just such individuals.